A Symbolic, Numerical and Graphical Computations Lab to Support a Revised Curriculum in Calculus and Differential Equations

The Department of Mathematics at the engineering institution Rose-Hulman Institute of Technology will establish for all freshman and sophomores a laboratory for symbolic, numerical and graphical computations. SUN work stations and the computer algebra system MACSYMA will be the basis radical change in the mode and methodology of the calculus and differential calculus sequences. The emphasis is to impact the engineering curriculum by stressing "mathematical experimentation" by use of powerful research tools used in industry. The grantee is providing an equal sum obtained fron non-Federal sources.